Revealing our Galaxy's Massive Star Clusters

AST-0607497

INSTITUTION: University of Cincinnati
PI: Margaret Hanson
TITLE: Revealing our Galaxy's Massive Star Clusters

ABSTRACT

Dr. Margaret Hanson, at the University of Cincinnati, will undertake a program to locate massive star clusters within the inner Milky Way by means of infrared surveys. The goal is to establish various cluster properties using near-infrared spectroscopy, and then to utilize these clusters to help delineate Galactic structure. The research is intended to shed light on the origin and fate of massive clusters themselves, both in our own and external galaxies. A complementary component of the program is the continued development of OB star atmospheric models, which will further our understanding of stellar atmospheres.

A major component of the broader impact of the program is the finalization of the near-infrared based atmospheric code, and its dissemination to the public through a searchable database of hundreds of atmospheric models. Additionally, Dr. Hanson is deeply involved in a number of large-scale initiatives at all levels of education (particularly grade school and undergraduate). Major efforts are focused on increased representation of women in science.